Irregular and optimized representations for image based rendering

ABSTRACT
0203932
Gortler, Steven
Harvard University

Image based rendering is a promising area of innovation in computer graphics. In image based rendering,
one starts with an input set of images or a video sequence. One then applies some degree of processing
to this data to obtain an intermediate representation. This intermediate representation is then used in an
interactive computer graphics setting. These interactive uses include but are not limited to: viewing the
scene from novel points of view that were not available in the input sequence, relighting the scene using
virtual lights that were not available in the input sequence, and geometrically manipulating the objects that
make up the scene. This functionality greatly enlarges the uses of digital photographs, and introduces a rich
source of content for use in interactive computer graphics.
For image based rendering, we plan to focus on lumigraph representations, which are a sampled repre-sentation of the light that travels along the rays in the scene. In particular, the visual information of a static scene is represented by the five dimensional radiance function. This function describes the intensity and color of light for every 2D direction at every 3D spatial position (x; y; z). If we consider only the
subset of light leaving the convex hull bounded object (or equivalently entering a bounded empty region of
space), the fact that radiance along any ray remains constant 1 allows us to reduce the domain of interest of
the radiance function from five to four dimensions.